Genetic Recombination and Genome Rearrangements Copper Mountain, Colorado, July 1989

This grant supports a FASEB Summer Research Conference on Genetic Recombination and Genome Rearrangements, held July 9-14, 1989 in Copper Mountain, Colorado. The conference is under the auspices of the Federation of the American Societies of Experimental Biology (FASEB). The format of this meeting will be the same as that used by the Gordon Research Conferences. There will be nine major sessions with 36 invited speakers. The chairperson of each session will give an introductory talk on the historical background and the current problems to acquaint all participants with the topics in that session. Poster sessions will be held throughout the meeting. Informal workshops of small groups will be arranged before or at the meeting. This conference is the only regularly scheduled meeting in the United States that is devoted exclusively to genetic recombination and genome rearrangements. The topics to be covered at this meeting are current approaches to gene therapy, genome rearrangements that lead to cancer, genetics of homologous recombination, enzymology of homologous recombination (strand transferases, nucleases, and resolvases), physical structure of recombination intermediates, repair of mismatch sites in heteroduplex recombination intermediates, site-specific recombination and regulation of gene expression, and bacterial and eukaryotic transposition.